Connect Gulf Coast Research Laboratory to MISNET

9521766 Scruggs The University of Southern Mississippi requests support from NSF for a connection to the Internet through the MISNET regional network. MISNET (MISsissippi Higher Education Research NETwork) is the midlevel network located in the state of Mississippi that will provide operations and network information services. It will provide the University of Southern Mississippi with a connection to the Internet, a collection of interoperable networks that connect most research and education organizations in the United States The university needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of the University of Southern Mississippi.